Analysis of Interacting Particle Systems on Sparse Graphs

The research will provide rigorous justification and guidelines for developing principled approximations of a wide range of interacting particle systems. These approximations will be applied to provide improved insight into the qualitative behavior of a large range of phenomena modeled by interacting particle systems that arise in diverse fields in science and engineering. The PI has a strong commitment to various initiatives that help popularize mathematics and its applications to a wide range of audiences. She has given several talks at elementary and high schools, and is the founder of a math outreach group called the Math CoOp. The proposal also has a strong educational component, involving vertically integrated mentoring of post-doctoral fellows, graduate and undergraduate students, and also providing them with mentorship opportunities. The PI will continue to be active in organizing conferences and providing support to junior researchers. She will also continue to disseminate her work via her lectures, courses and publications, and serve the broader mathematical community.

This proposal aims to develop foundational theory for interacting particles systems (IPS) on sparse random graphs. In particular, the proposal seeks to develop new approaches to establishing concentration bounds, utilizing a variety of tools from stochastic analysis, random graph theory and percolation. The aim is also to analyze the long-time behavior of these systems, and obtain tractable
approximations for a class of IPS that can be rigorously justified by convergence results. While such results are fairly well understood for systems on complete and dense graphs, falling under the rubric of mean-field theory, processes on sparse graphs are much less understood. This proposal seeks to fill that gap. In the process, new techniques will be developed. The proposal also has a strong
interdisciplinary component with much potential for applications. The research brings together different areas of probability, including functional inequalities, Gibbs measures and statistical physics, stochastic analysis, optimization and random graph theory.